Distributed Scheduling and Control of Robots

This is a continuation of a project that started while Prof. Arbib was at the University of Massachusetts, and is being conducted in collaboration with Prof. K. Ramamritham there. Substantial progress has been made on a distributed formal model of robot computations, operating system and scheduling support for realizing that model, and control-theoretic approaches to task-level robot control. The work on the distributed model is centered at the University of Southern California, while the other topics are pursued mainly at the University of Massachusetts. The work centers on control of complex tasks involving grasping and manipulation with a dexterous robot hand (the Salisbury hand).